Hispanic Sample of the Panel Study of Income Dynamics: 1993-96 Interviews

9222727 Duncan This is a longitudinal study of income dynamics and other social processes among Hispanics. It builds upon a survey administered in 1990 to a national sample of 2,043 Latino households that had participated in the 1989 Latino National Political Survey. In 1991 and 1992, reinterviews were conducted with these same households, producing longitudinal information on income, employment, and family structure dynamics, comparable to data collected at the same time on the original sample of the Panel Study of Income Dynamics. The present project will extend this time series of annual interviews with Latino sample households to 1996, and a special effort will be made to secure interviews with households that had become nonresponse since 1989. This research will provide a substantial information base that follows Hispanics over a period of years, allowing social scientists in several disciplines to trace changes in families and their incomes over time. When combined with the already-funded Panel Study of Income Dynamics which studies chiefly non-Hispanics, this extensive new data set will answer many scientific and policy questions about the opportunities and life courses of Hispanics, including Hispanic immigrants. ***